REU Site: An undergraduate research program in Discrete Mathematics

The objective of the program is to provide an opportunity for eight carefully selected undergraduate students to learn firsthand the nature of mathematical research. The participants will conduct independent
investigations, under the guidance of experienced researchers, on problems in combinatorics and number theory.

Duration: mid June - mid August 2008-2010; Stipend: $3550.
Allowances: Travel up to $500; living expenses $1500; cost of on-campus apartment housing.
Deadline for applications: mid February each year.
Exact dates and more information is available at the program web page.

The site is co-funded by the Department of Defense in partnership with the NSF REU program.